U.S.-Netherlands Cooperative Research: Energy Partitioning in Molecular Fragmentation

Ronald Olson This proposal supports a cooperative experimental-theoretical effort between the University of Missouri-Rolla and the University of Groningen, The Netherlands. The effort will be headed by Robert DuBois and Ronald Olson on the US side, and by Reinhard Morgenstern and Ronnie Hoekstra from The Netherlands. The project will investigate, both theoretically and experimentally molecular fragmentation induced by strongly non-perturbative interactions involving slow to intermediate energy projectiles. The experimental techniques and expertise associated with molecular fragmentation available in Groningen will be combined with electron spectroscopic studies at the University of Missouri-Rolla to develop methods of measuring the differential electron spectra associated with specific molecular dissociation channels. The proposed approaches offer real prospects for making significant headway in understanding the dynamics of molecular fragmentation induced by slow-to intermediate-energy ionic projectiles.